Geoelectrics and Geostatistics for Characterization Ground Water Protection Zones and Soil Liners

This research will use geoelectrical methods along with a supporting systems methodology for defining aquifer protection layers: natural aquitards and soil liners. The systems methodology will utilize geostatistics and multicriterion decision making to quantify the electrical measurements in terms of protection and soil liner parameters.